Connection to OARnet and Internet - North Central Technical College

The North Central Technical College requests support from NSF to connect it's campus to the Internet. The North Central Technical College in Mansfield, OH has approximately 9,200 students and offers 52 degree and certificates in approximately 28 programs of study. The college intends to connect through OARnet, a local Internet service provider. The campus needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.